A Framework for Path and Resource Sensitive Optimizations

The current design for compilers typically includes optimization modules in order to provide the performance required in today's application programs. The extensive research performed on code optimization in the last 25 years has focused on developing the necessary data flow and code improving algorithms for particular optimizations. Although these efforts have been enormously successful, a number of problems with the optimization models that are currently used are surfacing. One problem relates to where optimizations are applied in the program code. Another problem is that the optimization models that have traditionally been used are inflexible and simplistic in that they do not take into account the available machine resources or characteristics. This research is exploring techniques which address these problems through the development of a framework for path and resource sensitive optimizations. The machine characteristics, the available resources and the most beneficial paths of a program to optimize, including interprocedural paths, are factors in the path and resource sensitive optimization algorithms. The data flow analysis used by the optimization algorithms is being enriched with capabilities to exploit machine characteristics and profiling information in a systematic fashion.